Acquisition of a Workstation Cluster Testbed for Next- Generation Collaborative Computing

9512356 Vitter Duke University proposes the establishment of an ATM-based network cluster of high-performance 64-bit workstations for supporting collaborative research and applications. Three fundamental systems performance concerns are considered for supporting a wide mix of workloads and applications of these collaborative activities: locality management, resource conflicts, and resource reduction. Seven specific projects have been identified: (1) toolkits and interfaces for explicit control of disk resources, (2) parallel file system, (3) virtual memory support for memory-intensive computations, (4) distributed shared memory, (5) cluster virtual storage, (6) data compression, and (7) predication for locality management. The workstation cluster instrumentation is necessary to perform state-of-the-art experimental research on methods to make the cluster viable for next-generation collaborative computing. The proposed cluster testbed is indispensable for conducting the research. The instrumentation is both the vehicle for and the subject of research. ***